Learning and Application of New Methods to the Study of Mitochondrial Heat Generating Mechanisms in Endothermic and Ectothermic Vertebrates

Berner 9805808 The activities to be undertaken in this Research Enhancement POWRE project include learning new methods at an external site, perfecting the new methods at the home institution, applying the new methods to the PI's research program, and forging a new collaborative relationship with colleagues at another institution. Academic year 1998-99 is the sabbatical leave year of the P1. The PI will spend one semester in the lab. The purpose of the trip Is two-fold: to learn the new lab methods which will broaden the PI's research' program and to solidify a developing collaborative relationship. The PI will spend the second semester perfecting the techniques at the home institution with the animal models commonly used in the PI's lab. Upon working out the methods in the home lab, the PI will begin applying the new methods to the ongoing research project of the P1. The PI will involve undergraduate in this part of the project and the 'proposal includes summer salary for two students for the summer, This proposal is particularly suited to a POWRE award. It makes possible significant professional advancement of the PI by broadening the scope of the research project through learning new methods, and it increases leadership opportunities by providing funding for undergraduate research. Completion of these activities would not be possible without funding from the NSF which provides necessary salaries and supplies, and the ability to dedicate time to these activities.